Acquisition of SHRIMP S300 Ion Microprobe

9413102 McWilliams This award provides partial funding for the acquisition of a high-mass resolution, high-transmission ion microprobe that will be installed and operated in the School of Earth Sciences at Stanford University. Stanford University is committed to providing the remaining funds needed for the acquisition of the instrument. The ion microprobe will be used primarily in research projects in isotope geochemistry, cosmochemistry, geochronology, and materials science. The facility will be open to scientists from Stanford University, the U.S. Geological survey, and other research institutions. The new design ion microprobe will be capable of quantitative in situ measurements of isotopic and elemental compositions of geological materials with micron scale spatial resolution in three dimensions and high sensitivity. *** 9406684 Johnson This award provides partial funding for the support of a technician assigned to the Radiogenic Isotope Laboratory in the Department of Geology and Geophysics at the University of Wisconsin, Madison. The technician will assist in the operation and maintenance of the laboratory's equipment that includes a multicollector thermal ionization mass spectrometer and associated instrumentation for sample preparation and data analysis. The laboratory is a resource for mass spectrometric analysis needed in research and teaching projects in the earth sciences by a large number of researchers on-campus and off-campus. Research applications include work on Arctic Ocean sediments, mantle geochemistry, volcanism, geochronology of carbonates in the Michigan Basin and Wisconsin Arch provinces, and Archean and Proterozoic granites. The technician will also participate in the technical developmental work of the laboratory, including the development of new methods for the quantitative measurement of the isotopes of hafnium. ***